San Diego Urban Systemic Initiative

9552881 Pendleton The San Diego Unified School District has proposed a comprehensive plan that will initiate action in four areas: 1) Systemwide aspects: The system will increase graduation requirements, will hold schools accountable for ambitious outcomes, and will reallocate resources to support improvement. The USI will strengthen systemwide leadership and the organization of instructional programs. 2) School Sie Capacity Building and Community Involvement: Schools wil address mathematics and science through a Compreshensive Site Planning process, and will form a cadre of Key Teachers. The USI is an integral part of a plan to provide technology links to all classsrooms. 3) Learning Environment and Student Opportunities: The USI will implement rigorous content and perforance standards, and students will have access to increased academic support. 4) School Staff Quality: The USI will provide teachers with ongoing opportunities for professional development in mathematics and science, at summer camps, at district centers, and at area colleges and universities. ***